SHF: Precision Emulation on AI Chips (PEACH): Challenges, Opportunities, and Impact on Scientific Computing

Current trends in Artificial Intelligence (AI) are driving changes in the hardware
available on the market for general purpose computing. One major change is the increased
emphasis on performance at relatively low accuracy, which is a typical setup for the vast
majority of AI algorithms. However, this change will affect other scientific domains,
often requiring highly accurate simulations of natural phenomena. As a result, scientific
software can either evolve to benefit from the new hardware design trends, or push back
against prioritizing reduced accuracy at the hardware level. Some research efforts
investigate novel algorithms for maintaining high accuracy on hardware primarily designed
for AI workloads. Such efforts are called "emulation algorithms".

This project aims to study the impact of emulation algorithms on scientific software
requiring high-precision computations, and whether emulation can completely replace native
computations at high accuracy. It seeks to define the performance-accuracy tradeoff on
several numerical linear algebra algorithms and provide insights on the numerical behavior
of emulation on various workloads that could expose shortcomings, ultimately leading to
potential improvements over the current state of the art. The project also explores
possible opportunities for improving existing algorithms using emulation, such as
mixed-precision linear solvers. Graphics Processing Units (GPUs) are the primary focus of
this project, as they dominate the AI market. The projects seeks the effective use of
hardware accelerators for low-precision matrix multiplications, such as NVIDIA's Tensor
Core technology, in various compute workloads spanning linear solvers, eigenvalue and SVD
problems, batch linear algebra, and other algorithms.